Mitochondrial Phylogenomics: Investigation of Fish Phylogeny and Nucleotide Character Sampling in Large-scale Phylogenetic analysis

Mitochondrial phylogenomics: Investigation of fish phylogeny and nucleotide character sampling in large-scale phylogenetic analysis

Molecular systematics employs variation in DNA to reconstruct historical
relationships among organisms and investigate evolutionary processes that
have given rise to the earth's biodiversity. The growing volume of DNA
sequence data and the increasing number of characters and/or species that
may be included in evolutionary investigations have placed greater
importance on methods of phylogenetic analysis and experimental design. It
is intuitive that the more data that can be applied to a phylogenetic
question, the greater the probability of recovering an accurate estimate of
the phylogeny. Although phylogenetic accuracy may be positively correlated
with the number of species sampled from a particular group, a fundamental
question in molecular systematics remains: How many nucleotide characters
are required to resolve the phylogeny of a given number of species,
particularly when all (or most) of the extant members of a group have been
sampled? This project will employ a large, robust phylogeny to investigate
the sensitivity of phylogenetic analysis to nucleotide character sampling.

The ray-finned fishes (class Actinopterygii) exhibit extreme diversity
with more extant described species than all other vertebrate groups
combined and are of major ecological and economic importance. Despite
extensive morphological study, phylogenetic relationships among many
actinopterygian lineages remain unclear. This project will compile a data
set of complete mitochondrial genomes from 73 species of ray-finned fishes,
including representatives of 32 (out of 42) orders and extensive sampling
from the two largest orders, Cypriniformes and Perciformes. Mitochondrial
genomes are small chromosomes that are inherited independently of the
majority of DNA found in the nucleus. The clonal, maternal inheritance of
mitochondrial DNA makes it particularly useful in phylogenetic studies.

Mitochondrial genome sequences, along with nuclear gene sequences, will be
used to generate a robust hypothesis of phylogenetic relationships among
the most important lineages of ray-finned fishes. This data set will
reveal patterns of diversification among fishes and provide important
insights on the evolution of early vertebrates. The mitochondrial data, in
conjunction with the best phylogenetic hypothesis, will then be used to
investigate nucleotide sampling properties in phylogenetic analysis.
Sub-samples of different numbers of species will be drawn from the group of
73 species. For each sub-sample, the number of nucleotides required to
recover the correct phylogeny, with various levels of support, will be
determined. The influence of several important evolutionary parameters on
phylogenetic accuracy will be investigated. These parameters include a)
the frequency of variable nucleotide sites in the sample; b) the amount of
evolutionary divergence among taxa; c) the amount of evolutionary rate
variation among included lineages; and d) the extent and distribution of
nucleotide compositional bias among sampled taxa. The results will provide
a deeper understanding of the behavior of nucleotide data in phylogenetic
analysis and should identify a range of nucleotide sample sizes required
for accurate estimation of phylogeny as a function of the number of taxa
under investigation and relevant evolutionary conditions. Such objective
criteria for experimental design will be of practical benefit to the field
of molecular systematics by providing guidance in budgeting and allocation
of resources and by improving the efficiency and accuracy of molecular
phylogenetic studies.